Highly-Excited States of Atoms and Molecules (Physics)

Experiments will continue an investigation of highly- excited molecular hydrogen. These experiments will include measurements of field ionization and autoionization spectra of the triplet nd Rydberg series, two-photon spectroscopy of the triplet np series, and a study of the Stark effect. A new area of investigation will be a novel set of experiments to study reactive collisions of Rydberg H2 with other atoms and molecules. Similar measurements will be extended to other diatomic molecules, including He2, N2. and H1. A new line of research will aim at improving our understanding of complex atoms, such as iron-group elements. This research will combine multi-laser measurements of highly-excited states with MQDT analysis and then will attempt to work downward in energy toward the complex spectral regions observed by classical emission spectroscopy. This approach has the potential to provide new insights and understanding of complex atoms.